SGER: Exploratory Research on A New Survivable, Scalable, and Self-Adapting Network Architecture Based on Biological Concepts

The Bio-Networking Architecture that the PI proposes in this project is inspired by the observation that the biological world has already developed the mechanisms necessary to achieve such key requirements for the Next Generation Internet (NGI) as scalability, heterogeneity and dynamicity, security, survivability, and simplicity. In the biological world, each individual entity (e.g., a bee in a bee colony) follows a simple set of
behavior rules (e.g., migration, reproduction, energy exchange, mutation, and death), yet a group of entities (e.g. a bee colony) exhibits complex, emergent behavior (e.g., adaptation, evolution, security, urvivability).
Therefore, if services and applications adopt biological concepts and mechanisms, they too may be able to achieve the key requirements of NGI.

The researcher proposes to apply key concepts and mechanisms from the biological world to design, implement, and empirically evaluate a new network architecture called the Bio-Networking Architecture. In the Bio-Networking Architecture, services and applications are implemented by a collection of multiple entities called cyberentities (as a bee colony consists of multiple bees). These cyberentities have functionality related to their service or application and follow simple behavior rules (e.g., migration, reproduction, energy exchange, mutation, death) similar to biological entities. In the Bio-Networking Architecture, useful emergent behaviors (e.g., adaptation, evolution, security, and survivability) result when individual cyberentities interact. The Bio-Networking Architecture can be applied to a variety of
NGI applications and services, including information dissemination, data storage, resource discovery, or public key infrastructure.

The innovative claims of the proposed project are:

The proposed Bio-Networking Architecture is the first attempt to apply the
biological concepts of emergent behavior, autonomous control, and adaptation
and evolution to a broad and general class of network services and
applications. Previous studies of biological architectures were for the
purpose of understanding biological processes, simulating life or emergent
behavior, distributed computation, or robotics.

The Bio-Networking Architecture enables the construction of services and
applications which meet the key requirements of NGI. Scalability is
achieved because cyberentities act autonomously, and on a local basis using
only local information. Construction of the service or application is
simplified because only relatively simple behaviors at the cyberentity level
need to be designed. The other requirements of adaptation, security, and
survivability are simply the emergent behavior of the cyberentities
interacting as a whole.

Services and applications designed using the Bio-Networking Architecture
adapt to heterogeneous and dynamically changing network conditions through
the autonomous actions of their cyberentities, each exhibiting simple
behaviors. They also evolve to more desirable behaviors through the
mutation and natural selection mechanisms of the Bio-Networking
Architecture. Current network services must be manually configured and
optimized to network conditions.

The Bio-Networking Architecture has features which can be used as
additional layers of defense against attacks. Services and applications can
use, in addition to traditional security techniques such as authentication
and encryption, features of Bio-Networking Architecture such as intrusion
detection, autonomous replication, algorithmic diversity, and dispersion of
the cyberentities, as additional layers. These features increase the
probability that the service or application can detect, survive, and recover
from coordinated attacks by insiders, terrorists, or nations. Current
network services and applications have only one layer of defense, so they
are unlikely to survive a coordinated attack.